Computational Training for Teacher Enhancement, Action, and Motivation

9353416 Denning This 36 month project links a small rural North Carolina school district to community, university and computational resources. It supports them in building curriculim units ties to local issues and in training teachers to deal with the concomitant technologies. Teachers are central to school change and become local mentors and change agents supporting their colleagues in adopting computational interdisciplinary approaches. Initial plans target specific skills taught in the context of wetlands, which are vital to the local area. A multi-grade sequence of activities is envisioned which ties together the work of students in the elementary, middle and high schools. In the early grades, teachers and students focus on simple simulations and viusual representations. In the middle grades, they deal with dynamic models and student representations. In the high school, they work with numerical methods and computational methodologies and have access to software on the Cray at the North Carolina Supercomputing Center. Eighteen K-12 teachers are trained in each of the first two years and 24 in the third year. The partners in the project include Elizabeth City State University providing access to the network, equipment and technical expertise, East Carolina University helping with curriculum change, teh North Carolina Supercomputing Center training the staff in computational science, and the N.C. Science and Mathematics Alliance extending the goals of the state systems initiative to the Camden school district. Cost sharing is estimated at 45%